High Resolution Gamma Spectroscopy and Spectrum Analyzer for Undergraduate Laboratories, Projects and Undergraduate Student Research

Boise State University will purchase a high-resolution gamma-ray spectroscopy system, and a fast Fourier transform spectrum analyzer. This equipment will be used to provide research opportunities for undergraduate physics majors, and to improve instruction in a senior physics laboratory course and a senior computer science course. Planned student projects include the identification of radioactive isotopes in environmental samples, and investigations of magnet flux properties in high-temperature superconductors. Boise State University will match the NSF grant with an equal amount of funds.